Molecular and Solid-State Consequences of Ground State Degeneracy (Chemistry)

Many materials that exhibit unusual chemical reactivity or unusual transport properties owe their uniqueness to a near-degeneracy of the electronic ground state. Existence of a low-lying electronic state in a molecular species results in thermally excited interconversions which can enhance reactivity. Rates of processes involving electron transfer can also be affected by near-degeneracy of the ground state. In materials with extended structures, "ground state degeneracy" can take the form of a high density of states at the Fermi level, with attendant metallic behavior. Like their molecular counterparts, however, these systems are often subject to some form of Jahn-Teller instability which can introduce a gap at the Fermi level and give rise to transport properties characteristic of a semiconductor. In order to understand better the structural interactions that result in unusual properties for inorganic systems, Dr. Strouse will carry out extensive low temperature crystallographic studies. All of the inorganic systems to be studied exhibit temperature dependent structures. Almost no other laboratory in the country is equipped to carry out low temperature crystallography (as low as 20K) and related studies on the magnetic resonance and Mossbauer measurements of inorganic systems. The experimental capability of this laboratory has the potential to be important for eventual structural studies of high temperature superconductors.